Less Brittle Glass

ABSTRACT
EEC-9813307
Varner/Alfred Univ

This is an Exploratory Research Project to augment the Industry/University Cooperative Research Center
for Glass Research.

The objectives are to understand the concept of brittleness in non-metallic, glassy systems, and to determine the compositional/structural parameters that make certain glasses less brittle. Various indexes will be studied to determine which tests provide the best measure of brittleness. Success will lead to more effective use of glass in areas where strength is a critical design parameter